Incorporation of FT-NMR Spectroscopy into the Undergraduate Chemistry Curriculum

The Department of Chemistry is purchasing a 200 MHz FT NMR spectrometer for use in its sophomore organic chemistry laboratory, as well as in other upper division courses within the department. In the organic laboratory, students produce spectra of reactants and/or products relating to standard experiments, then use the instrument to identify unknowns. In the physical chemistry laboratory, students use the instrument in connection with reaction kinetics experiments and in studying reaction transition states. In the biochemistry laboratory, students collect COSY spectra of dipeptides and follow the metabolism of C-13 labeled glucose in E. coli. In the spectrometric methods course, students work independently on a variety of projects involving special techniques of FT-NMR spectroscopy.